Acquisition of a Parallel Supercomputer

9413819 Karniadakis A research group at Brown University, working on aspects of high performance architectures for computational science, will use ARI funds to purchase a state-of-the-art parallel computer for researches involved in: (1) Parallel Algorithims Paradigms; (2) Parallel Methods for Hyperbolic Problems; (3) Parallel Methods for Incompressible Flows.